Workshop on New Directions in Plasma Engineering U. C. Berkeley, June 9-10, 1988

This proposal is for support of a workshop on "New Directions in Plasma Engineering", at the University of California, Berkeley, June 9-10, 1988. The workshop will bring together industrial, government, and academic researchers to discuss three emerging fields in plasma and charged particle beam engineering: (1) generation of electromagnetic radiation, (2) plasma-assisted materials processing, and (3) nonlinear processes in plasmas and beams. These areas have seen remarkable growth in the past few years, developing both new scientific knowledge and exciting possibilities for engineering applications. One goal of the workshop is the preparation of a report to provide guidance for future NSF support from the QEWB program in these fields. The report will address the reasons for the emergence of each field, the current state of the art, the critical problems needing solution, and the future impact of the field on the practice of engineering.